NSF Young Investigator Award

This research focuses on the effects of alloy content on the mechanical behavior of intermetallic materials. It is expected the results of this research will be an advancement in the scientific understanding of these materials, allowing alloy designers to optimize their mechanical properties and unlock their true potential.